Novel Separations by the Use of Modified Clays

This Minority Research Planning Grant project is supported through the Office of Special Projects and the Analytical and Surface Chemistry Program in Chemistry and involves the use of layered, sheet-like, clays as selective adsorbants for separations. The adsorption process takes place in spaces between clay plates which act as molecular sieves. Clays where the aluminosilicate plates are negatively charged and counter cations of sodium are inserted between the clay layers will be studied. The sodium ions can be exchanged by larger cations in order to expand the spacing of the layered clays and create void volumes where permeation can occur. Clays that are modified in this manner will be designed for use in size exclusion chromatography. %%% Minority Research Planning Grants are intended to strengthen the proposal writing and planning capabilities of new investigators and to facilitate preliminary studies and other planning activities related to the research. This project will involve extensive interaction with senior researchers at Michigan State University during the formulation of research ideas and the preparation of the research proposal.